Collaborative Research: SHINE: Characteristics of Solar Energetic Particle Events Resulting from Filament Eruptions

Understanding the details of solar energetic particle (SEP) acceleration is critical for accurate predictions of space weather and potential impacts on sensitive space-based assets. This 3-year SHINE project is aimed at studying SEP events associated with filament eruptions on the Sun. The goal is to isolate and investigate SEPs accelerated at CME-driven shocks with minimal flare material contributions. The work expands on other researchers' recent results by using more instruments to cover a broader energy range and extend the analysis. The methodology involves spectral and elemental composition data analysis techniques that are well established. The dissemination of the scientific results will be made broadly to the scientific and space weather prediction communities through published articles, scientific talks, and personal communications. In addition, project results and relevant data sets will be made available via the public web pages of the ACE and STEREO Science Centers. The three project teams have excellent track record of publications, participating (often in leadership roles) in various workshops (e.g., SHINE), and attending scientific conferences. Both the team leader and a Co-PIs are under-represented minorities and funding is included for the involvement of an undergraduate student. The project will promote strong international collaborations for the benefit of advancing space weather research both in the USA and worldwide.

The research plan of this 3-year SHINE project includes four main tasks. The first task is to examine the characteristics of heavy ions for previously identified events. The spectral shape variation as a function of particle species reveals characteristics of the accelerating shock, while the composition provides important clues regarding the SEP seed population. The second task is to study smaller SEP events associated with filament eruptions by using the more sensitive SEP sensors onboard ACE and STEREO. The inclusion of STEREO data alone has the potential to increase the number of events suitable for study and, in combination with near-Earth spacecraft, allows the examination of SEP characteristics as a function of longitude. The third task is to define stronger constrains on the primary acceleration region by combining calculations of the particle-release times, for both for single-and multiple-spacecraft events, with timing of the corresponding solar signatures. The fourth task is to study in detail similar filament eruption events without associated SEP events in order to identify specific features that are key to SEP generation. The project is directly relevant to the NSF's SHINE program, because it will provide important knowledge about the acceleration and transport of SEPs during solar eruptive events. Such knowledge is critical for accurate modeling and prediction of space weather conditions from the solar surface to the Earth and beyond. The research and EPO agenda of this project supports the Strategic Goals of the AGS Division in discovery, learning, diversity, and interdisciplinary research.